Singularities of solutions to geometric variational problems

DMS-0406447
Title: Singularities of solutions to geometric variational problems
PIs: Gang Tian and Neshan Wickramasekera, M.I.T.

ABSTRACT

The primary focus of this proposal is to study the local
structure of weak limits of (smooth as well as singular) immersed
stable minimal hypersurfaces of arbitrary dimension, with
the ultimate goal of extending the partial regularity
theory of embedded stable minimal hypersurfaces, developed
in 1981 by R. Schoen and L. Simon. Relaxing the embeddedness hypothesis
allows the presence of additional singularities, for instance points
where the tangent cones are hyperplanes with multiplicity greater than
one. It is proposed to investigate the nature of these singularities,
with the aim of obtaining information concerning the size and the
structure of these singularities, possible uniqueness of their tangent
cones as well as the local nature of the hypersurface near the singularities.
The second project proposed is a study of the effect of certain
topological and analytic constraints (on the target
manifold) on the regularity propeties of the singular sets of energy
minimizing harmonic maps between Riemannian manifolds.

The regularity theory of minimal surfaces and harmonic maps has a very
rich history and the results and ideas developed in these areas have
profoundly influenced several other fields of contemporary research in
mathematics and physics,
such as Yang-Mills fields, free boundary problems, curvature flows and
general relativity.
Obtaining a good structural description near singularities turns out to be
highly desirable in many problems in pure and applied mathematics, and any
new advances in minimal surface theory in this regard will likely have
an impact on these other fields.